Travel to Conference, " Ab Initio Calculations of the Complex Processes in Materials," Schwaebisch Gmuend, Germany, August 22-26, 2000

This is a group travel award, funded jointly with the MPS Office of Multidisciplinary Activities, to provide travel support, primarily for young investigators, to attend the Psi-k2000 Conference in Shwaebisch Gmeund, Germany, August 22-26, 2000. This is an European Union Network sponsored conference. The grant will allow about fifteen young scientists to attend this conference.
%%%